New Tools for Teachers through SECME Network Training

New Tools for Teachers Through Secme Network Training is a one year pilot program to tryout the ideas contained in the three-year proposal that was submitted. The project will provide a series of three-day workshops with one-day follow-ups locally at school systems throughout the Southeast. Precollege and university resources available from within SECME will be utilized to enhance the skills of less expert teachers. SECME Institutes had previously readied teachers for participation in the program and this new project will provide advanced inservice of subject-matter science related training. An amount equivalent to 6.2 percent of the NSF award is being contributed by SECME as cost-sharing.